Nonparametric Estimation in Engineering

DMS 9626762 Ruppert The research is on nonparametric estimation of conditional expectations, conditional variances, and conditional densities, i.e., estimation without assuming that these functions belong to a parametric family. The work uses local regression, a particularly simple and effective nonparametric method, where one fits parametric models locally at each point in the domain of the function in order to estimate the function at that point. By varying the point one achieves a globally nonparametric estimator. The degree of "localness" is achieved by a bandwidth or smoothing parameter. The work includes (a) multivariate local polynomial regression where the local neighborhoods are determined by a symmetric, positive definite bandwidth matrix that must be estimated; (b) non-polynomial local models for estimating functions with poles, jump discontinuities, or discontinuous derivatives; and (c) semiparametric estimation of correlation functions and other functions of scientific interest by local fitting of estimating equations. %%% Present applications of this research on nonparametric estimation are mostly in engineering but include nutrition. These applications include density-estimation radiosity in computer graphics, analysis of simulation data from the pdf method of modeling turbulence, estimating volatilities in financial engineering, combining local regression smoothing and kriging for spatial data analysis, and modeling the correlation between nutrient uptake as measured by both food frequency questionnaires and more accurate, but also more expensive, food records. In the strategic area of environmental science, this work has been applied to two very different methods of monitoring air pollution, LIDAR and biomonitoring. ***